Electrical Modernization of the American Household

Between the two world wars, the American home completed the transformation the industrial revolution had begun. Changing demographic patterns, urbanization, technological advances, and new economic values combined to produce a household and a homelife that differed markedly from those of the nineteenth century. Contemporary observers understandably attached great significance to the changes they saw in the new style of American family life. Electrical modernization clearly occurred and both contemporary observers and historians have presumed that it was a significant part of the household revolution. Electrical lighting was safer, cheaper, and better than gas illumination and enhanced the comfort of the home. Electrical refrigeration profoundly affected food management (moreso than different cooking technologies) and washing machines fundamentally altered household hygiene. Although electricity has been the principle form of energy in the twentieth century, historians have not devoted the same attention to electrical modernization as they have to other technological and social changes. As a result, historians lack a sense of the timing and course of electrical modernization. In their investigation of the electrical modernization of the American household from 1920 to 1954, Drs. Tobey and Wetherell advance our understanding of the relationship between society and technology by examining when and how American households adopted one of the century's most important everyday technologies. Specifically, Drs. Tobey and Wetherell aim to answer the following questions: When was domestic electrical technology introduced to the American household? What is the causal relationship between its introduction and the distribution of labor inside the household, the entrance of married women into the wage-labor force, and the use of credit financing to acquire electrical technology? And, what is the relationship between electrical modernization of the household and the establishment and character of the role of the modern "housewife"? Using both individual and aggregate-level data, the investigators illuminate the phenomenon of electrical modernization, its timing, sequence, and social context.